Enhanced Dynamics Experiments

This proposal will provide laboratory experiences for physics students at a community college on the concepts of continuous or variable changes that can occur during particle dynamics. Both the subject matter and the laboratory techniques are not usually presented at this level, and, hence, this proposal affords an interesting opportunity to study the ability of subjects to grasp this subject matter. The instructor (P.I.) is very qualified and these experiences will enhance the understanding of these concepts by these students.